Northeast Student Workshop On Nonlinear and Hybrid Control. The workshop will be held at Rensselaer Polytechnic Institute on April 1-2, 2005.

This proposal requests funds to support the inaugural Northeast
Student Workshop on Nonlinear and Hybrid Control, to be held at the
Rensselaer Polytechnic Institute from Friday, April 1, through
Saturday, April 2, 2005. The goal of the workshop is to offer
educational opportunities to graduate students and junior
researchers to learn about the latest developments in control
systems research, particularly in emerging application areas; to
present their research results; and to share and discuss ideas with
their peers, as well as with faculty members from other
universities. The proximity of the universities in the Northeast
provides an excellent opportunity to realize this goal with minimal
travel cost. Upon a successful initiation with the help of NSF
funds, these workshops will be continued biannually. The
intellectual merit of the proposed activity is that it will provide
a stimulus for sustained research in control systems theory, as well
as increased number of applications in other fields of science and
engineering. The broad impact resulting from the proposed workshop
will be the encouragement of a broader and more diverse group of
students (than those who are already able to attend major
conferences in the field) to pursue research careers.